Acquisition of a Superconducting Fourier Transform NMR System

Nuclear Magnetic resonance (NMR) spectroscopy is the most versatile tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spcectroscopy is essential to chemists who are carrying out frontier research. This award from the Chemistry Shared Instrumentation Program will help the Chemistry Department of the University of South Florida to acquire, maintain and operate a high-field NMR spectrometer. Among the areas of research that will be enhanced by the acquisition are included: 1) Structure and characterization of highly branched macromolecules 2) Geometric isomerization in 1:1 electron donor-acceptor complexes 3) Assignment of congested 1-H and 13-C NMR spectra of complex polycyclic heteroaromatic systems using two-dimensional and multiple-quantum techniques 4) Synthesis and characterization of nucleosides.